CAREER: Compilers for Dependable Computational Mathematics

Algorithms used in computational mathematics are increasingly
sophisticated and complex; and the modern civilization critically
dependents on scientific software at all levels from design to
equipment control. Yet, the programming languages and tools used to
express algorithms as computer programs do not progress at a matching
pace, leaving an expanding gap between provably correct published
algorithms and their realizations in code. Failures in software
systems can cost human lives and are responsible for billions of
dollars lost annually. Furthermore, silent failures of simulation
software can seriously undermine the credibility of a scientific
model, entailing profound intellectual liabilities. This research
project will investigate formal-methods-based principles and tools to
make the practice of programming a more mathematical activity for
ordinary programmers. The overriding aim is to make dependability a
common basic property of critical software.

To that end, the PI will design a new programming system that supports
research in axiomatic programming based on new logical linguistic
constructs, invent new programming models and tools grounded in formal
reasoning and methods. The PI will investigate the design of practical
dependent type systems for mathematics software and their efficient
compilation to support integrated automated deduction and computer
algebra systems. The project has synergistic components that build
bridges between symbolic and algebraic computation, compiler construction,
proof theory, and education. Insights gained from this project will
be integrated into new courses, supported by a book on the practical
implementation of modern type systems and compilers. The PI expects
to discover basic principles of axiomatic programming, tools, and
techniques. The results are expected to influence the evolution of
existing major mainstream programming languages (such as C++) in
their support for structured generic programming and improvement of
software reliability. As ever, the PI will involve students both at
the undergraduate and graduate levels, in hands-on, fully integrated
research-based classes.